Medium Effects in Ionic Reactions

This grant in the Organic and Macromolecular Chemistry Program suppports research jointly directed by Professors S. P. McManus and J. M. Harris, at the University of Alabama at Huntsville. This experimental work is directed at evaluating theories of solvent effects on ionic reactions of organic chemicals in solution. Since the large majority of chemical reactions used in the laboratory and in the chemical industry are carried out in the solution phase, this work is important for maximizing yields of chemical processes and for optimizing reaction conditions. Specifically, the solvatochromic theory of Kamlet, Taft, and coworkers and the empirical approach to reactivity developed by Swain and others will be tested and compared by studying reactions with known solvation requirements. Application of rate data to the equations proposed by Kamlet-Taft and by Swain will be used to assess the success of these methods to treat rate data for a variety of reaction types. This will be the first independent experimental program aimed at evaluation of these two solvation theories.